CISE Research Instrumentation

A multiprocessing system will be provided for researchers at the University of Missouri - Rolla for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of, 1) The Application Oriented Fault-Tolerance Paradigm, 2) Application of Parallel Automated Reasoning to Diagnosis, 3) An Intelligent Example-Generator for Graph Theory, 4) Development of a Versatile Communication Mechanism and its Language Support, and 5) Parallel Computer Operating System Development.